Acquistion and Evaluation of a Multi-Threaded, Shared MemorySupercomputer

The University of California, San Diego (UCSD) and the San Diego Supercomputer Center (SDSC) propose acquisition of the first commercial MTA system. The salient features of the Tera MTA multiprocessors are: -high-speed GaAs processors, -its multi-threaded architecture (hence MTA), which should allow more concurrency and thus higher processor efficiency, -an interconnection network scalable to hundreds of processors, -shared memory with its convenient programming model and broad applicability, -a sophisticated compiler for automatic parallelization. This system will be made accessible to researchers and educators nationwide for production computing and computer science experimentation. In addition, local researchers will evaluate performance of the MTA a from both systems and applications perspectives.